Oceanographic Technical Services

0001112
Willis
This award to Oregon State University provides shipboard technical support, shore-based support, as well as maintenance and calibration of shared-use scientific instrumentation, for researchers using R/V Wecoma, a general purpose research vessel operated by the university's College of Oceanographic and Atmospheric Sciences as part of the University-National Oceanographic Laboratory System research fleet. The award also provides support for research using two portable systems, either on Wecoma or other UNOLS vessels, including a large piston coring system for sediment sampling and an undulating tow vehicle for profiling chemical, biological, physical and optical properties of the water column. The technical support awarded here will assist NSF-funded researchers conduct a diverse suite of oceanographic studies, principally in the North Pacific Ocean, beginning in 2000.
***